Multi-campus NSFNET connection through BARRNet

9409303 Vaskelis This project connects the San Mateo County Community College District computer center to the Internet over a T1 (1.544 million bits per second) line. The District includes three campuses which are now able to access the Internet: College of San Mateo San Mateo Skyline College San Bruno Canada College Redwood City Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.